Human Language Technology 2002: Special Focus on Language Modeling of Biological Data

This will support a special focus workshop at the Human Language Technology Conference in the area of Language Processing of Biological Data. The purpose of this special focus within HLT 2002 context is to bring to the attention of a wide audience of researchers across all aspects of human language technology the research opportunites and recent research breakthroughs in this newly emerging area. This support is also intended to further promote cross-disciplinary approaches to the new field of bioinformatics.